Minority Graduate Research Honorable Mention: Debbie DeLoach

This special award will give Ph.D. student Debbie DeLoach flexibility in pursuing her graduate studies and research initiation in Behavioral Ecology. This award will strengthen minority research participation in this area.